International Travel Grant to Attend the Sixth International Symposium on Catalyst Deactivation

ABSTRACT CTS-9419513 Bala Subramaniam Travel of Dr. Bala Subramaniam to attend the Sixth International Symposium on Catalyst Deactivation to be held in Oostende, Belgium, on October 3-5, 1994. At the meeting he will report on his work on the use of supercritical media to control coking in reforming operations. This effort was supported initially by an Engineering Research Initiation Grant and later by NSF's EPSCoR program and the State of Kansas EPSCoR. This represents a successful effort for both the RIG and The EPSCoR program and deserves to be presented before an international audience.